International Conference on Multiscale Methods and Partial Differential Equations; August 26-27, 2005; Los Angeles, CA

The International Conference on Multiscale Methods and Partial Differential
Equations will be held at UCLA on August 26-27, 2005. The objective of this
conference is to bring together researchers, students and practitioners with
interest in the theoretical, computational and practical aspects of multiscale
problems and related partial differential equations. The conference will
provide a forum to exchange and stimulate new ideas from
different disciplines, and to formulate new challenging multiscale problems
that will have impact in applications. Despite considerable progress in a
wide range of the sciences, and a growing awareness of the importance
of multiscale approaches, currently there is fragmentation in multiscale
methodology, its rigorous analysis and its applications. There is an urgent
need to develop systematic multiscale analysis and computational
methods that can be applied to a wide range of practical problems. This
effort poses new challenge to the theory of partial differential equations.
By bringing together analysts, experts in multiscale modeling,
and computational scientists, we can identify the key issues in multiscale
mathematics and common themes of various multiscale problems arising
from different disciplines. This provides a unique opportunity to make
significant advances in this area.

Advances of computational sciences in the past few decades have resulted
in an increase of several orders of magnitude in computing power.
Modeling and simulations of physical problems in a narrow range of
scales have been quite successful. However, to solve complex
physical problems which involves a wide range of spatial or
temporal scales remains to be a major challenge in many scientific
disciplines. These problems are of vital importance to our national
interests, affecting our policy and technology advances in areas such as
environmental science, energy, biology, materials science, and
information science. Multiscale analysis, modeling, and simulation is
an emerging new research area which has already made significant
impact in many scientific disciplines. There have been many exciting
recent, but problem specific, advances in multiscale analysis, modeling
and simulation. Up to now, most work on multiscale modeling and
computation has been developed within an individual discipline.
Breakthroughs in specific domains could be applicable in a broader
context, but remain isolated. As a result, multiscale descriptions are
nowhere near their potential level of impact, including in education
and industry. One of the main purposes of our multiscale conference
is to integrate these isolated efforts and diverse developments. The
conference will also provide a special opportunity to connect applied
mathematicians with domain experts in multiscale modeling and computation.
This will help bridge the gap in research and knowledge transfer
between mathematics and other application disciplines.